Instrumentation for Recombinant DNA Instruction in the Undergraduate Biology and Microbiology Curricula

Faculty in the Departments of Biology and Microbiology are undertaking a significant enhancement of courses in Molecular Biology, Microbiology, and Genetics. The vehicle by which this advance is being achieved is the introduction of recombinant DNA techniques into selected courses, one of which is entirely new. Concomitant with this is a greater integration of the teaching activities of the Biology and Microbiology Departments. The degree in which recombinant DNA technology has advanced in recent years makes it quite feasible to teach techniques of gene manipulation to advanced undergraduate students. This provides both a body of knowledge and technical skills which should enhance the competencies of these undergraduates. It also provides the necessary basis on which many of the undergraduates could make a decision regarding further study in graduate school. As recombinant DNA technology permeates more areas of biology and is applied to an expanding number of disparate problems, knowledge of it becomes increasingly necessary in the undergraduate curriculum. The equipment provided through this award will enable the faculty to employ their biotechnology skills more effectively in their teaching -- to the great advantage of the curriculum.